Undergraduate Physics Laboratory

9804922
George

The proposed project intends to explore undergraduate students' learning of physics using two specific instructional technologies, microcomputer-based laboratories and digital video analysis of experimental data. It comprises work to be done over a two-year period, based at the University of Wisconsin-Whitewater in collaboration with the Univesite de Montreal. It is expected that this work will lead to the development of further projects. The goal is to contribute to the growing but still insufficient knowledge available to physics educators and college decision makers on the benefits of instructional approaches that include these technologies for teaching and learning complex physics content and general science skills.